Experimental Bond Energies in Tetrahedrally Coordinated Semiconductors

This grant is for the renewal of a highly productive research program at Marquette University (DMR-8701160), which resulted in several scientific papers and graduate students in the area of thermodynamic properties of compound semiconductor materials. In addition, undergraduate students were involved with the research thereby attracting promising students to graduate careers in science and engineering research and teaching. The research during this grant period emphasizes experimental determination of chemical bond energies of the substitutional acceptors, zinc and cadmium, in germanium, silicon, and mercury-telluride. The partial pressure of zinc and cadmium over solid solutions in silicon or germanium-containing acceptor dopants is being determined from the optical absorbance of the vapor phase using hollow cathode lamps. The chemical potential and partial molar enthalpy and entropy are determined from the data. Likewise the same thermodynamic parameters are being determined for mercury and cadmium zinc telluride. In addition to the research, the program has a significant impact on the infrastructure by training students at both the graduate and undergraduate levels in this critical science.